Investigations in Elementary Particle Physics

9322114 Duncan A number of theoretical investigations in Quantum Field Theory and specific aspects of Quantum Chromodynamics (QCD) and the Standard Model of Electroweak physics will be carried out. The methods employed will mostly be nonperturbative, including Monte Carlo simulations in lattice QCD, analytic improvement of perturbation theory, and 1/N expansions. The lattice calculations will lead to high-precision first-principle evaluations of decay constants and mass splittings in the B-meson system, of central importance for upcoming studies of B-meson phenomenology in B-factories. Nonperturbative techniques are essential for attacking problems in strongly-coupled field- theories such as QCD. The problems attacked represent fundamental issues of topical interest in Quantum Field Theory and matters of direct phenomenological relevance to current and future generations of particle accelerators. ***